Research Planning Grant: Computer-Assisted Formulation of Computer Architecture Designs

The objective of this research planning grant is to lay the groundwork for a research effort that will develop and integrate methods and tools to provide computer assistance for designing single-chip microprocessors and multi-chip based computers. The focus of this work will be at the architectural design level. Most computer-aided design (CAD) research has not addressed the initial formal specification phase of the design process. A correct and complete functional specification is necessary before these computer-aided design tools are useful. The results of this work will lead to a proposal for a global system for computer architecture design and performance estimation.